Analysis of a Seafloor Magnetometric Resistivity (MMR) Data Set Collected on the Juan de Fuca Ridge Near 45 N

9503130 Evans This project will analyze magnetometric resistivity data collected on the Juan de Fuca Ridge, in order to determine the best algorithms for processing such data and to assess its potential as a remote-sensing technique for 3D mapping of the thickness and structure of oceanic crust. ***